Research Initiation: Using Multicast Communication for Resource Finding in Distributed Systems

This research address the general problem of resource finding in distributed systems. The premise is that existing solutions to this problem cannot be used, without a substantial performance penalty, in systems where the location information needs to be updated rapidly or when the system contains a large number of nodes. The use of multicast communication to reduce the cost of resource finding is investigated. In broadcast networks, the algorithms to be explored will make use of the hardware support provided for multicast in many network interfaces. In point-to-point networks, the task is to formalize the notion of a search algorithm and to study the problem of finding search algorithms that minimize the average bandwidth or time when a probability distribution is defined for the location of a resource. The problem of implementing multicast communication in point-to-point networks is studied. Many of the algorithms for finding remote objects will be implemented in the Clouds distributed operating system.